An Internet-Based Meta-Model Driven Distributed Workbench for MBS

This project articulates a long-term vision centered around the concept of
an Internet-based Meta-Model Driven Distributed Workbench (M2D2W), and aimed at revolutionizing the ways in which MBS can assist engineers in the design and analysis of complex systems. It focuses essentially on an 18-month exploratory research effort whose two main objectives are to address a number of identified obstacles and challenges, and demonstrate the credibility of MBS for the engineering of civil and mechanical systems. For this purpose, the concept of a multidisciplinary M2D2W will be researched, a prototype built, and its potential demonstrated by applying it to the aeroelastic stabilization of the Bronx-Whitestone bridge. The stabilization study is to include the planned design of a new orthotropic deck, which when installed will lighten the bridge considerably, and the investigation of several mitigation procedures in anticipation of even poorer aeroelastic response characteristics.

The main technical purpose of the M2D2W is to provide an open, multidisciplinary, scalable, interactive, and Internet-based simulation environment. The outcome of this research effort is expected to promote and enable a paradigm shift from closed single discipline analysis codes, to open, multidisciplinary, Internet-based,what-if simulation environments. This in turn will contribute to transforming MBS into a practical methodology for the engineering of civil and mechanical systems.
***